EAGER: MAKER: Making Prosthetics for Kids - Socially Relevant Making to Catalyze Diversity and Engagement in STEM Learning

This exploratory research project is studying socially-relevant Making in the context of an on campus
university Makerspace. Project studies are developing best practice models of how
informal STEM learning through Making can be leveraged to improve the effectiveness of both
informal and formal learning approaches, as well as to increase retention and broaden
participation in STEM education for students and faculty. This is being studied across both
secondary and post-secondary levels in partnership with a local engineering-focused high school.
Project research is grounded in a specific socially-relevant challenge problem: designing and
fabricating prosthetic hands for children who need them. Challenge problem activities are
connected directly to real world context and outcomes in partnership with a nonprofit
organization that specializes in facilitating and providing 3D printed recreational prosthetic
hands free of charge for children with limb differences.

Project research is defining novel integrations of informal and formal STEM learning pathways,
providing case studies, learning materials, lessons learned, and scalable design templates for
learning ecosystems at other institutions. The focus on design thinking supports learning
benefits from cross-disciplinary interaction, particularly in interdisciplinary peer learning of
STEM concepts, exposing non-STEM learners to STEM concepts, and disrupting traditional
teacher-student roles. Project outcomes are catalyzing and sustaining diverse learner transitions
to a Maker STEM-based affinity identity by identifying best practice design patterns for learning,
focused by the challenge problem, which can be applied more generally to foster synergetic
interactions between formal and informal learning within educational environments.